Development of a Hypermedia Learning Laboratory for Undergraduate Engineering Students

Resources are made available to acquire computers, auxiliary equipment for computer support, and commercial software for equipping a hypermedia learning laboratory for use by undergraduate engineering students. This laboratory will be used for formal teaching of computer techniques to be utilized in freshman and sophomore courses. In addition, it will be made available for students to use computer aided instructional (CAI) material prepared as supplemental learning material for civil engineering courses. This information will be prepared in a hypermedia format which may include text, sound, animation, video sequences, photographs, example and practice problems, and assessment instruments. CAI can supplement and enrich course material initially presented in the classroom. Data bases listing design criteria, material properties and specifications, cost, regulatory rules, etc. can be provided with equipment now available in purchased for wordprocessing, spreadsheets, CAD,graphics development and programs for solving specific problems in the various topic area will be available for the students to use in their preparation of both oral and written class assignments.